CEDAR: Determination of Geocoronal Balmer-alpha Intensities and Upper Atmospheric Hydrogen Densities from WHAM Fabry-Perot Observations

Abstract for Roesler 0003166

This award would support analysis and additional measurements of the spectral profile of the geocoronal Balmer emission at 656.1 nm that would be obtained for data obtained in the period between solar minimum and solar maximum by the Wisconsin H-alpha mapper (WHAM) operating at Kitt Peak, AZ. These results would be combined with modeling of Bishop that is represented by the global atomic resonance radiation transport modeling code. These results would enable the extension of the current WHAM data base from a few case studies to a much more comprehensive database. These results would make possible public access to the WHAM web-based database of geocoronal column-integrated Balmer-alpha intensities.